2011 Riviere-Fabes Symposium

This award will support the participation of graduate students and postdocs in the "2011 Riviere-Fabes Symposium" that will be held at the University of Minnesota-Twin Cities from April 15-17, 2011.

This annual conference, of which the 2011 meeting will be the fourteenth in the series, celebrates the mathematical legacy of Nestor M. Riviere and Eugene B. Fabes by focusing on recent developments in analysis, especially in the field of partial differential equations. The 2011 program will feature two principle speakers (Hitoshi Ishii and Michael Taylor), each of whom will give a two-hour lecture, and a number of one-hour talks delivered primarily by young mathematicians (Xiaochun Li, Yvan Martel, Robert McCann, Susanna Terracini). The program allows ample time for informal discussion among the participants.